Travel Support for the l995 Dagstuhl Seminar on Deduction, March 20-24, l995, Dagstuhl Seminar Center, Wadern, Germany.

An international seminar on deduction organized by Prof. Wolfgang Bibel (Technische Hochschule Darmstadt, Germany), Prof. Koichi Furukawa (Keio University, Japan), and Dr. Mark Stickel (SRI International, Menlo Park, California) was held 20-24 March l995 at the Dagstuhl Seminar Center in Wadern, Germany. About 50 researchers working in the field of automated deduction from around the world were invited to participate.